Interplay Between Interfacial Patterns, Singular Perturbations and Heterogeneous Medium

Yip
DMS-1009102

The investigator and his colleagues study the interaction
between the defect structures in materials (such as phase and
grain boundaries) and the background heterogeneous medium. The
heterogeneity can come from intrinsic atomic structures,
externally imposed forcing, or even numerical approximations.
The emphasis is on understanding the structure and propagation of
interfaces. Due to the highly nonlinear interaction between the
materials interface and background inhomogeneity, many new
features arise, most notably boundaries between patterns instead
of pure phases, and pinning and de-pinning transitions. In terms
of mathematical disciplines, the project is related to the
concept of homogenization of singularly perturbed problems in
which multiple scales coexist. To tackle nonlinear problems as
in the current setting, new techniques and interpretations beyond
traditional approaches are required. The project investigates
the structure and propagation of boundaries between patterns, and
the connection between pulsating waves and singular
perturbations. Both the discrete and continuum regimes are
analyzed.

The project is highly interdisciplinary and is
well-motivated by problems coming from applied science, in
particular materials science. It brings together rigorous
applied analysis, numerical simulations and modeling in a variety
of physical phenomena. It emphasizes the connections between
multiple scales, as practical materials often are composed of
structures that have greatly different length scales. Results
can lead to better understanding of how applied forcing and
changes of external environments can affect the behavior of
materials responses. This in turn can lead to the manufacturing
of stronger and better materials.